Undergraduate Research in Experimental Physics: Summer Bridge Program

*** Thews Opportunities for undergraduate students to participate in ongoing research projects in experimental physics are structured in a summer REU program at the University of Arizona. Students may choose from a wide variety of forefront physics activities, under the direction of senior faculty members from the Department of Physics. The main student audience will be those who have finished the equivalent of the first or second year curriculum in science or engineering at Pima Community College, in preparation for transfer to a 4-year degree program. This program is also available to similarly prepared students from regions outside southern Arizona who will be resident in Tucson during the summer. Graduate Teaching Assistants from the physics department serve as mentors for the students. Special orientation and skills activities are individually tailored to enable the students to continue their associations with the research project after the completion of the summer REU program, most often as paid laboratory associates. Recruitment activities place special emphasis on women and underrepresented minorities. Because most students will start in this program at a very early point in their scientific education, we encourage continuity in their development by allowing past participants to apply for admission in subsequent summer sessions. ***